NSF Convergence Accelerator Track E: Ocean Vision AI: Scaling up visual observations of life in the ocean using artificial intelligence

In order to fully explore our ocean and discover the life that exists there, we need to scale up our observational capacity. To address this need, underwater imagery is being collected at rates that far exceed our ability to process them, and new techniques using artificial intelligence are critical. This project, Ocean Vision AI, will accelerate processing of underwater imagery by combining expertise in imaging, artificial intelligence, and open data, and creating data and analysis pipelines that convert pixels to actionable data. Ocean Vision AI will provide opportunities to enhance an ocean data science workforce and public engagement through community science portals and game-based education initiatives. Together, Ocean Vision AI will be used to directly accelerate the automated analysis of underwater visual data to enable scientists, explorers, policymakers, storytellers, and the public, to learn, understand, and care more about the life that inhabits our ocean.

In order to fully explore our ocean and discover the life that exists there, we need to scale up our observational capabilities both in time and space. To address this need, underwater imaging, a major sensing modality for marine biology, is being deployed on a diverse array of platforms. However, as more visual data are collected, the community faces a data analysis backlog that artificial intelligence may be able to address. Ocean Vision AI seeks to address this need by providing a central hub for groups conducting research that use imaging, AI, and open data; create data pipelines from existing image and video data repositories; provide project tools for coordination; leverage public participation and engagement via game development; and generate data products that are shared with researchers as well as other open data repositories. These efforts will result in novel intellectual pursuits in fields as varied as marine biology, fisheries, biological oceanography, underwater optics and computer vision, artificial intelligence, ocean engineering, biomechanics, environmental biology, human-computer interaction, game-based education, and community contributions to science.